Regenerative Optimal Control of Energy Efficient Dynamic Systems

Dynamic systems are characterized by a rapidly varying kinetic and potential energy of their inertia and capacitive elements. A deceleration may be achieved by reversing the direction of flow of energy in the actuator by an energy absorbing element (i.e., brake), or simply by the parasitic losses of friction. The first case is referred to as regenerative braking. This research will provide a framework for analyzing the regenerative potential of a dynamic system. If regeneration is found feasible, the use of the strategies developed will lead to a lowered power consumption. This in turn will be significant for operating cost reduction or for making portable energetic devices feasible.